Behavioral Lateralization in Prosimians

Human behavioral lateralization as preferential hand use has existed at least throughout recorded history. Lateralization became a matter of even greater interest in the present century when it was discovered that such other human functions as language and spatial abilities are lateralized between the cerebral hemispheres. However, the development of a theory of neural lateralization has been impeded by an assumption that behavioral functions with lateralized neural mediation are only to be found in humans. This view has been particularly strengthened by studies of nonhuman primates that have concluded that handedness is characteristic of human primates only. Dr. Ward has recently found that prosimians, the most primitive primates, do have hand preferences in reaching for food, and that use of the dominant hand is systematically affected by posture. This research project will explore a variety of lateralized behaviors and the factors that affect their expression in ten species of prosimians. Two species will be studied in Dr. Ward's laboratory with a battery of formal tests and informal observations. Eight other species will be observed at the Duke University Primate Center under free-ranging conditions. Observations will be videotaped and analyzed for patterns of lateralized behavior specific to individuals and families, by task, activity, and posture, and for species-typical patterns. The data base will permit Dr. Ward to evaluate the generality of prosimian laterality, will contribute to development of a biological theory of neural lateralization, and will enable scientists to identify suitable animal models for further study.